STTR Phase I: Fire Ground VR

The broader/commercial impact of this Small Business Technology Transfer (STTR) Phase I project is to revolutionize firefighter training by creating a virtual environment that mirrors real-world scenarios, such as interactive fire equipment usage. This training program reduces training costs, improves safety by reducing training injuries, and reduces the environmental impact of live firefighter drills. The potential commercial and societal impacts of the project include enhanced training effectiveness, broader accessibility and inclusivity, standardized training, research and development, crisis management and preparedness, and global collaboration. The project may also have applications in diverse fields such as emergency response, industrial safety, and specialized vocational training.

This Small Business Technology Transfer (STTR) Phase I project offers immersive training environments for firefighters, a departure from traditional classroom and live fire exercises. The technical innovation of this training solution incorporates mobility, real-time data sensors, and tactile feedback mechanisms, such as a haptic nozzle, to enhance the training experience. The project will employ a controlled laboratory setting to test the virtual reality environment, leveraging advanced technologies like gaming computers, spherical cameras, and specialized headsets. These tools blend real-world interactions with digital content, creating a virtual reality that mimics natural dimensions across various sensations. The project will also assess graphic technology's adaptability to integrate with online platforms for data management, ensuring secure access, storage, and retrieval. This adaptability ensures scalability and efficient data retrieval, further enhancing the training experience.